Engineering Research Equipment Grant: A Hypercube Multiprocessor for Real-Time Parallel Computation

A hypercube multiprocessor will be used for research in parallel algorithms and architectures in the areas of robotics, image processing, logic simulation, and fault tolerance. These are significant research areas in which the research group is likely to make significant progress with this equipment. Accordingly, an award is recommended.